Visual Processing in the Dorsal Lateral Geniculate Nucleus

The goal of Dr. Lehmkuhle's research is to understand why we have different pathways that transmit different types of visual information from the eye to the brain through a structure called the dorsal lateral geniculate nucleus (LGN). This structure is one of the first stages of processing where the visual input can be modulated by cortical and other extraretinal influences that are important to making eye movements, being alert, and attending. The LGN could be the site of many interactions that could subserve visual phenomena such as visual attention, binocular fusion, blink suppression and saccadic suppression. In this project, Dr. Lehmkuhle will characterize how retinal information is modified and relayed onto the visual cortex by the LGN and how these alterations in the flow of information along the different pathways are related to visual attention. Two sets of physiological experiments will be conducted. In the first set, Dr. Lehmkuhle will study alertness and its effect on the responsivity of LGN cells. In the second set of experiments, he will measure the influence of eye position on geniculate neurons. Dr. Lehmkuhle is well qualified to carry out this important research project. These experiments are essential steps toward an understanding of the role of the LGN to vision.